I-Corps: Bioresorbable drug delivery patch for the localized treatment of Crohn's Disease

The broader impact/commercial potential of this I-Corps project is the potential development of a novel therapy for Crohn's disease-related strictures. Approximately 750,000 Americans are diagnosed with Crohn's disease, and up to 50% of patients with Crohn's may require at least one surgical resection within 10 years of diagnosis for the structuring condition. However, the surgical approach has concerns including potential post-surgical morbidities, possible poorer quality of life, and a higher risk of unemployment, and disease recurrence with surgery is common, with 50-60% of patients needing re-operations. There is currently not a widely used intestinal-retentive therapeutic within the field of gastroenterology. A typical customer is a gastroenterology physician treating patients with Crohn's disease complicated by strictures. This physician generally works for an academic hospital or a private practice and bills a healthcare insurance company for therapy on behalf of his or her patients.

This I-Corps project is based on the development of a novel therapeutic that may offer an improved effective therapy for Crohn's disease-related strictures than options currently available on the market. Specifically, the status quo for non-surgical treatment of Crohn's disease strictures is endoscopic balloon dilation, which relies on mechanical force to stretch open intestinal blockages. The proposed technology may develop a biologic delivery therapeutic that acts directly at the site of stricture, potentially secreting anti-inflammatory pharmaceuticals in a time-controlled manner through biodegradation. The proposed technology may allow for repurposing traditional, but lesser effective systemic pharmaceuticals, into a platform therapy that delivers longer and more localized therapies that may unlock alternate treatment options for conditions such as Crohn's disease strictures.